NSF Engines: Futures Engine in the Southwest

The Futures Engine in the Southwest aims to advance US innovation capacity in two interrelated areas: water security, and abundant and affordable energy. The Southwest (SW) region of the U.S. is changing rapidly, with extreme weather events that damage infrastructure and pose serious health risks and increasing water and energy insecurity that threaten economic prosperity. The SW region comprising Utah, Nevada, and Arizona is especially vulnerable due to extreme aridity and heat coupled with rapid population growth (the 2020 U.S. Census shows that Utah, Nevada, and Arizona are first, fourth, and fifth, respectively, for population growth). In fact, as rapid growth increasingly conflicts with severe water shortages and growing energy demands, the economic development of the SW is reaching a critical threshold.

The NSF Futures Engine will make progress toward transforming the SW region into a national innovation hub in water and energy and bring high wage jobs, economic growth, and technology-based startups and venture capital investments to the region. The NSF Futures Engine will serve as catalyst to (1) connect and institutionalize a distributed regional innovation ecosystem – industry, researchers, innovators, investors, decision-makers, and community leaders; (2) incentivize co-innovations in technology and governance; (3) expand translation infrastructure and capacity to support technology startups; and (4) prepare a highly skilled innovation workforce that creates new businesses and meets the needs of existing employers.

The scale of the challenges in the American southwest demands a coordinated approach across state boundaries. The collapse of the Colorado River water allocations and the failing energy grid system are prime examples of traditional uncoordinated approaches. The NSF Futures Engine crosses disciplinary and sector boundaries to bring teams of engineers, scientists, and experts in policy and governance together to co-innovate technology, workforce, and regulatory, policy, governance approaches. The NSF Futures Engine has an extensive network of core partners and regional stakeholders, spanning for-profit industry, entrepreneurs, state and local government, and workforce and economic development partners.